RUI: Systolic Arrays with Sublinear Time Complexity

The PI has previously developed a cubic systolic array for matrix multiplication. Answers are now being sought for the following pair of questions concerning such arrays: Can they be used in conjunction with a general purpose processor to create a "matrix computer" in the same way that a "vector processor" is used in a "vector computer"? Could such a computer be used to efficiently solve various other linear algebra problems? Cubic systolic arrays allow matrix multiplication in time sublinear in the matrix size. Designs are sought for further systolic devices that will solve further algebra problems in time sublinear in the matrix size. This research is directed toward adaptation of known parallel solutions of computational problems for efficient execution on more readily implementable parallel computers. The significance of this research is in the additional insight it is expected to provide into aspects of parallel computation.